Methodology for Integrated Manufacturing and Distribution Planning

The design and control of large-scale distribution systems are central elements offering major opportunities for productivity improvement. The principle investigators will develop simple yet highly accurate mathematical models of complex, multi-echelon distribution and production systems based on new approaches initiated and tested in earlier work.